RAPID: Rapidly building a collaborative network of informal educators to address extended school closures related to the 2020 COVID-19 pandemic

This RAPID award is made by the AISL program in the Division of Research on Learning in the Directorate for Education and Human Resources, using funds from the Coronavirus Aid, Relief, and Economic Security (CARES) Act. COVID-19 presents a national threat to the health of children and families, presenting serious implications for the mental and physical health of children. This project addresses two critical aspects of the impact on COVID-19 on families: (a) the large-scale shift to at-home learning based on nationwide school closures and (b) the critical need for families to understand the basic science of virus transmission and prevention. To address these needs, the project team will develop a series of STEM activities for families with children in grades K-6 that make use of items readily available in most households. The activities help children and their families learn about viruses, virus transmission, and virus prevention while also developing other STEM-skills, particularly related to engineering design. Importantly, the project team also considers the emotional well-being of children and families during the disruption of the COVID-19 pandemic. Led by researchers from Indiana University and Binghamton University, and experts in educational resource development from Science Friday (a non-profit organization dedicated to increasing the public’s access to science and scientific information through podcasts, digital videos, original web articles, and educational resources for teachers and informal educators) the project is further supported by partnerships with the New York Hall of Science, Amazeum (AR), the Gulf of Maine Research Institute (ME), The Tech Museum of Innovation (CA), the Indiana State Museum, and Kopernik Observatory Science Center (NY). The activities will be shared with families through live-streamed web sessions that introduce the activity, give tips to adults for facilitation, share a bit on related STEM careers and engage the audience in dialog about the activity and their current experiences. Versions of the sessions that are recorded will be edited and include closed-captioning and subtitles in multiple languages before being posted on platforms such as YouTube.

This project uses a design-based research approach to investigate strategies for enabling families to actively engage with STEM while home and away from their traditional institutions during a period of crisis. The research components focus on: 1) Engagement: How do families engage in the activity tasks, in terms of processes, practices, and use of resources? Who participated, why did they choose to participate and how did they engage (including modification of activities)? What barriers prevented interested families from completing activities? 2) Impact: How did the activities change participants’ feelings of: a) efficacy around STEM and b) connectedness/ isolation, during extended school closures? and 3) the Activities: Which activities had the greatest uptake? How many activity ideas were submitted by those outside of the team? What was the age/content focus of each of these activities? The researchers will analyze social media data (including data on resource downloads and use of tracked links, YouTube and Facebook views, comment threads during livestreams and Likes/Shares/Follows across social media sites) to refine and improve the activities and programming as well as learn about the ways families are engaging in the activities. The researchers will solicit survey responses from website visitors to gather more information on participants, why they participated, how they engaged and how the activities impacted participants’ efficacy around STEM and their feelings of connectedness or isolation. The researchers will also ask participants to submit images, videos and text that describes what they are making and their process along the way. Analysis of this data would lead to insights on how children and families use STEM language and practices; how children and families ask questions and use COVID-19-related and other information as part of their design work; and how ideas are formed, shaped and refined as families engage in design and making. While the project focuses on a unique opportunity to collect data on family STEM engagement as families respond to disruptions from the COVID-19 pandemic, this project and its findings will provide a knowledge base that can be utilized to inform future responses to national emergencies, other work aimed at promoting family learning at home, and approaches to supporting children in open-ended problem solving.